Collaborative Research: Key Microbial Processes in Oxygen Minimum Zones: From In Situ Community Rate Measurements to Single Cells

Oxygen availability shapes the distributions and activities of marine organisms. Ongoing human activities and climate change are expected to lead to expansion and intensification of already large oxygen-stressed areas of the coastal and open ocean. Decreases in ocean oxygen have significant ecological consequences, including habitat loss for migratory and bottom-dwelling organisms, modification of the marine food web, and production of trace gases with pronounced feedbacks on climate, such as methane and nitrous oxide. Intense chemical cycling by microorganisms occurs in oxygen-depleted marine habitats. However, a full understanding of the consequences for marine ecosystems is hampered by limited knowledge of actual rates of key microbiological processes and dynamics of the microorganisms mediating them. This study combines novel methods and sampling techniques to understand how these processes are influenced by changes in oxygen concentration to inform predictions of important chemical exchanges within a changing ocean and its production of climate-active gases. This deeply collaborative project trains undergraduates (four of whom participate on the cruise), a graduate student and a postdoctoral fellow. Outreach takes place in middle and high schools and through social media. Data and samples from the cruise are integrated in coursework.

Oxygen depletion alters cycling of major elements (especially carbon, nitrogen, and sulfur) as well as food web functionality. This project addresses major gaps in our knowledge of oxygen minimum zone (OMZ) processes by applying in situ approaches to more accurately measure rates of several key microbial processes (chemoautotrophy, denitrification, anammox, sulfate reduction and sulfide oxidation) central to marine biogeochemical cycling. This work studies the Eastern Tropical North Pacific OMZ, the largest open ocean oxygen-depleted system, to 1) determine the in situ rates of microbial processes involved in carbon, nitrogen, and sulfur cycling, 2) reveal the genomic blueprint of active single cells involved in these processes, and 3) obtain estimates of the relative contributions of the dominant chemoautotrophic and heterotrophic groups to the measured rates. This work include applies cutting-edge equipment for in situ sampling and incubations that minimize artifacts associated with traditional water sampling approaches, allowing more accurate estimates of rates of important biogeochemical processes. Additionally, rate measurements of relatively undisturbed bulk and fractionated water samples make it easier to distinguish the potential role of particle-associated microorganisms in these OMZ processes. Single cell sorting of microorganisms using a fluorescent dye indicative of cell activity together with metatranscriptomics informs on metabolic pathways used for key processes by active microbial community members, as well as the potential coupling of chemoautotrophy and nitrogen or/and sulfur cycling. By combining stable isotope probing, fluorescence in situ hybridization and single cell Raman microspectrometry the relative activity levels of different microbial phylotypes involved in chemoautotrophic and heterotrophic elemental cycling are assessed.